RIA: Design Conceptualization for High Level Synthesis of Hardware

Dutt This research is on a framework for IC circuit and system design, which uses a mixed media approach to aid engineers in modeling designs for high level synthesis. Design tools are being built on top of a graphical input language and a tabular intermediate representation. The representation uses a general design model that includes synchronous and asynchronous behavior, timing constraints and protocols between communicating designs. Specific research tasks are: 1. An environment for high level synthesis which provides multiple input media for design conceptualization and capture; 2. Inclusion of partially designed structures and user bindings into the environment; 3. Modeling guidelines for design description in VHDL which support high level synthesis and simulation. This supplement provides support for a minority graduate student.